CAREER: Optimal Approximability

The PI proposes to study constraint satisfaction problems like
Max-Cut, Max-2-Sat, Vertex-Cover, and Chromatic-Number. For many of
these problems, the boundary between efficiently-achievable
approximation ratios and NP-hard approximation ratios is unknown. The
PI has a 3-point plan to determine these boundaries:

1. Use recent connections between semidefinite programming algorithms,
integrality gaps, and property testing to determine precise
boundaries, assuming the "Unique Games Conjecture."

2. Define and explore new, more efficient property-testing--based
hardness reductions.

3. Prove the Unique Games Conjecture, using the new
property-testing--based reductions along with ideas from the theory of
Parallel Repetition.

The broader goal of this line of research is to give more efficient
and more effective algorithms for the fundamental algorithmic tasks
like network partitioning, constraint satisfaction, and optimization.
The PI will explore the limits of how well efficient algorithms can
solve these problems. Proving "hardness results" or limitations on
the capabilities of efficient computation has positive practical
consequences. For one, it prevents wasted effort in trying to improve
unimprovable algorithms. More importantly, by carefully isolating the
aspects of algorithmic tasks which make them difficult, we are often
led to new, effective algorithms for solving the tasks when these
aspects are not present.